Boundaries and End Structures for Non-compact Spaces and Groups

DMS-0072786 - Craig R. Guilbault

For the sake of simplicity and convenience, topologists
often focus on compact spaces. Nevertheless, non-compact
spaces---with all of their associated complications---are
frequently unavoidable. For example, the complement of a
compact subset of a closed manifold is not compact. Hence,
a topologist studying embeddings is quickly forced to consider non-compact manifolds. In fact, much of the foundational work
in the area of non-compact manifold topology was motivated by
questions about embeddings. While non-compact manifolds and
complexes continue to play a central role in topology, an
important new source of examples has entered the picture.
Increasingly, the examples of widespread interest arise as
covering spaces of compact manifolds and cell complexes.
In fact, progress on some of the most fundamental questions
in geometric topology and geometric group theory demand a
better understanding of these types of spaces---most of
which are non-compact. With these examples in mind, this
project aims to generalize and expand our understanding
of non-compact manifolds and cell complexes. Of particular
interest are Z-compactifications, structure theorems for
ends of non-compact manifolds, and existence and uniqueness
questions for boundaries of groups.

Many objects encountered in geometry and topology---like
the real line and the Euclidean plane---are "unbounded"
or "open" in nature. These spaces are fundamentally
different from bounded or "compact" spaces, such as a
line segment, a circle, or the surface of the earth.
The extra flexibility permitted by unboundedness opens
the door to exotic behavior "near infinity". There are
many examples of unbounded spaces that---although
they are constructed from simple bounded pieces---have
quite complicated geometry and topology near infinity.
One strategy for investigating such a space is to
"compactify" it by adding a boundary at infinity---much
as an artist mentally creates a horizon of vanishing points
to help him draw in perspective. When this is possible,
properties of the boundary can reveal important characteristics
of the original space. In some sense, the boundary represents
a crystallization of the "topology at infinity". Another
strategy for studying an unbounded space involves breaking
it into a manageable collection of bounded pieces. Ideally,
one would like to choose pieces that capture key properties
of the space, thus allowing one to study the non-compact
space---one compact piece at a time.